Mathematical Sciences: Qualitative Matrices and Signed Digraphs

This project concentrates on algorithmic aspects of problems in combinatorics, emphasizing the interplay between combinatorics and qualitative matrix theory. Qualitative matrix problems arise in situations where data is imprecise, for example, where knowledge is limited to qualitative information. One problem is to derive more qualitative information from qualitative data, such as determining the sign pattern of the solution to a linear system of equations from that of its coefficients. Graph theoretic problems relating to such signsolvability will be studied. In many real life situations, the data available is not in the form of numbers, but rather the information may be only that each number of interest is positive or negative. Mathematical methods to extract further information from such data are being developed, and have bearing on such areas as ecology, chemistry, mechanics, and energy planning.